SIAM-NSF Workshop: Modeling across the Curriculum

The project is offering a one and one half day working conference for 40 attendees at the National Science Foundation in June, 2012. Participants address opportunities and challenges for the mathematical sciences (including computational and statistical sciences) communities to engage in and to strengthen their participation in STEM educational reform efforts, in general, and modeling across the curriculum, in particular. Through the engagement of the various mathematical sciences components, the workshop contributes to the development of an effective model for engaging not only collaboration within NSF but also with SIAM and its community (including business and industry), allowing all to collaborate in the realm of education with those who have experience in teacher professional development. This workshop clarifies the details for developing, advancing and implementing an agenda focused on mathematical modeling across the curriculum, contributes to the ongoing effort to promote broader participation of the mathematical sciences communities, and facilitates the exchange of best practices and strategies between NSF program officers and workshop participants.